Mathematical Sciences: Division Algebras, Brauer Groups, andField Theory

This project concerns research on division algebras, Brauer groups, and field theory. There are two parts to the research. The first is to study local Brauer groups in dimensions greater than two, and the second is to express a class in the Brauer group as a product of cyclic algebras in an explicit way. The research supported is in the general area of field theory. Fields are algebraic structures similar to the rational numbers, the real numbers, and the complex numbers in that each nonzero element has an inverse with respect to multiplication. Field theory is a rich and deep subject with its historical roots arising from the early attempts to systematically describe the zeros of polynomials.